Collaborative Research: Lightning Properties of Downward Terrestrial Gamma-ray Flashes and Superbolts

Lightning is known to release high-energy radiation, such as x-rays and gamma-rays, that can provide insight into lightning processes and associated hazards. This project will deploy new instrumentation and maintain an existing global network of sensors to address questions about very strong lightning strikes known as superbolts, and determine how high energy emission characteristics change with different lightning properties. The project has relevance to mitigating lightning impacts on infrastructure and assessing health hazards of lightning emissions. There is also a significant student training aspect, which will enhance workforce development.

This project expands upon recent observations that show that the three historically recognized forms of high-energy radiation from thunderstorms – Terrestrial Gamma ray Flashes (TGFs), x-ray bursts from leader steps, and gamma-ray glows – are not as distinct as previously recognized, and there are several kinds of intermediate behaviors. The research team plans to continue and enhance their worldwide set of observations of TGFs, glows, and leader x-rays, and expand access to very low frequency/low frequency (VLF/LF) data to understand the lightning processes that produce high-energy emissions.